REU to Enhance Computational Science & Research at The Ohio State University Site

This project will bring 6 undergraduate students to the Ohio Supercomputer Center for 10 weeks during the Summer of 1991 to work on problems in computational fluid dynamics, flow visualization, grid generation, and numerical solution of PDEs. Half of the positions are committed to minorities selected form colleges and universities located in the northeastern United States. The students will receive three weeks of instruction in the use of supercomputers followed by 7 weeks of in-depth research on an appropriate project.